Algoviz Project Steering Committee Workshop

Computer Science (31)

This project involves the running of a workshop whose goal is to continue work on developing a community of users and developers of algorithm and data structure visualizations (AVs). Successful use of AVs depends on both the availability of quality educational materials and their proper deployment. The field of AV has progressed little from the mid 1990s in terms of adoption levels or total educational impact. Many developers are not making use of lessons learned. Since effective ways of developing and deploying AVs are known, these difficulties can be overcome by a cohesive community of AV developers and users. The goal of this project is to continue to build this community. This community helps to guide creation of an integrated collection of resources and infrastructure to serve as a communications hub and information clearing house. These resources leverage the progress already made by AV developers and users to bring about wider adoption and greater successful impact in the classroom.

The intellectual merit is the improvement of the computer science education community's understanding of how AVs can be made pedagogically effective. The broader impact is improving on the general availability and quality of AVs, which can affect the educational outcomes for many students every year in computer science and related disciplines. Providing a community resource on best practices improves the development of future AVs. A clearing house of available AVs and documenting best practices for their use provides quality educational materials to instructors.